CAREER: Vertically Integrated Program Analysis for Embedded Software

CAREER: Vertically Integrated Program Analysis for Embedded Software

In recent years, a great deal of progress has been made towards tool
support for developing embedded software. Tools solve a variety of
difficult problems, for example by automating error-prone
implementation tasks, by eliminating redundant and inefficient
constructs, and by guaranteeing the absence of certain classes of
errors, such as race conditions or out-of-memory exceptions. This
NSF CAREER research is about Vertically Integrated Program Analysis and
Transformation (VIPAT), a new way to look at embedded software tools:
as a collection of building blocks that can be connected together in
different ways to support novel analyses and transformations. The
existing tools become mechanisms that are controlled by a high-level
policy. VIPAT is based on two main ideas. First, the vertical
integration of tools that operate at various levels of abstraction,
which permits high-level transformations to be precisely targeted at
parts of a system whose low-level resource usage is worst. Second, a
clean separation between mechanism and policy, enabling effective
reuse of existing tools in new situations. This research is a step
towards a world where meaningful static guarantees about program
behavior can be made, and where software can be automatically
specialized to meet platform- and application-specific requirements
such as time and energy constraints. The high-level vision is
"fearless reuse": developers should spend less time worrying about
resource usage and potential failure modes of components that they
reuse.